Automated Collaboration Assessment Using Behavioral Analytics

The Automated Collaboration Assessment Using Behavioral Analytics project will
measure and support collaboration as students engage in STEM learning activities.
Collaboration promotes clarifications of misconceptions and deeper understanding of concepts
in STEM which prepares students for future employment in STEM and beyond. This project
aligns with the goal of the Cyberlearning for Work at the Human-Technology Frontier program to
fund exploratory research that supports learners in working productively in technology-rich
STEM environments. Collaboration is an important learning skill in K-12 STEM education, yet teachers have few
consistent ways to measure and support students’ development in this area. This project will
result in both an improved understanding of productive collaboration and a prototype
instructional tool that can help teachers identify nonverbal behaviors and assess overall
collaboration and engagement quality. Using nonverbal behaviors to assess engagement will
decrease dependence on discourse and content-based dialogue and increase the transferability
of this work into different domains. This project is particularly timely as the ability to collaborate
and engage in group work are growing requirements in professional and learning settings; at the
same time the very act of collaboration is being disrupted by the Coronavirus pandemic and
there is a high likelihood that much of this “new normal” (social distancing; combining in-person
and remote collaboration) will be with us for some time. This project will meet the urgent need
currently felt by educators and educational institutions to support the development of
collaboration skills among students, even as the very act of collaboration is shifting and nontraditional
forms of education are taking hold.

This project is a collaboration between the Center for Education Research and
Innovation (CERI) and Center for Vision Technology (CVT) at SRI International (SRI) and will
capture multiple students’ actions as they work collaboratively face-to-face, both in-person and
through a virtual platform. This project will use a collaboration conceptual
model, multistage predictive and explainable machine learning models, and video analytics to
assess and report on collaborative behaviors and interactions. The behavior analytics system
will use facial expressions, body movements, and meta-information about the collaboration task
to identify interactions that show how students contribute to the collaboration, individually and
collectively. This 2-year project will use reliability and model prediction testing and sequential,
correlation, and thematic analyses of video recordings, surveys, interviews, and student artifacts
to answer the following research questions: Can machine learning models reliably assess
collaboration when compared to human assessments? How do individual behaviors during
collaboration lead and relate to group level interactions and collaboration quality? and Can we
validate and relate the assessed collaboration behaviors to student outcomes as represented by
group-generated artifacts? The intellectual merits include contributions to the advancement of
two fields: (1) machine learning— by developing and exploring new algorithms that generate
explainable collaboration skill assessments and teacher/student dashboards at different grain
sizes of the interactions, and (2) learning sciences—by contributing a collaboration conceptual
model that shows how specific skills, interactions, and behaviors correspond to collaboration
quality at group and individual levels. Broader impacts of this work include increasing the
availability and types of feedback presented to instructors and learners from diverse
backgrounds. This will expand the settings and number of individuals who can be evaluated and
supported on collaboration by making collaborative learning easier to monitor through tools that
can be used by a wide audience of educators and professionals.